Compact High Brightness Semiconductor Lasers Using Waveguide Grating Mirror

This proposal seeks a new approach to the problem of improving spatial coherency in
large volume laser sources, and of coherent combination of the outputs of several lasers.
This approach is based on using guided mode grating resonances. A fundamental aspect
of this project is the study of mode competition in a laser resonator that contains a new
element: a waveguide grating mirror. This approach is applicable to different kinds of
lasers, but it is most advantageous in the case of semiconductor lasers.

We expect to improve brightness and high-power semiconductor lasers by a factor
of 60 to 100. Potential applications include semiconductor pump lasers, industrial lasers
for cutting and welding, lidars, and vertical cavity surface emitting lasers.